High-Tc Superconductivity Information Center

The High-Tc Update newsletter produced by the High-Tc Superconductivity Information Exchange at Ames Lab provides rapid, reliable information on superconductivity free to subscribers around the world. The 16 page newsletter includes extensive listings of preprints, a preprint review section, selected listings of Soviet Hi-Tc preprints, coming events, resources, news items, and announcements for jobs.